Collaborative Research: Modeling Sediment Delivery and Related Stratigraphy in a Tidal Dominated Delta: Fly River, Papua New Guinea

Abstract

The study will integrate a geomorphic model of tidal channels into a 3-D stratigraphic model and will use the Fly River Delta as the case study for building and testing the model, and then use the model to fill gaps in the current understanding of the Fly River source-to-sink dispersal system. The work will develop computational tools for modeling a tidal delta module for the INSTAAR SedFlux model as well as adapting existing modules for tidal river flow and 3D delta evolution. The study focuses on the critical 'missing link' in the Fly/PNG system, one of the two main field sites for MARGINS Source to sink, which is the delta region.